Collaborative Research: Understanding Compact Binary Formation With Gravitational Wave Observations

The LIGO–Virgo–KAGRA (LVK) gravitational-wave (GW) detectors have transformed GW astronomy into a precision science. Gravitational-wave observations now offer the depth and diversity needed to address long-standing questions in compact-object astrophysics, cosmology, and fundamental physics. A collaborative project between Johns Hopkins University (JHU) and Pennsylvania State University (PSU) will continue an ongoing program to capitalize on these opportunities through investigations with two overarching goals. First, the team will help to determine how compact binaries form and evolve by combining improved measurements of masses, spins, precession, and correlations with state-of-the-art models of isolated and dynamical formation channels. Second, they will advance gravitational-wave cosmology and particle astrophysics by exploiting exceptionally well-localized “golden” and “silver” gravitational wave events with no light (called "dark sirens") to measure the Hubble constant, which governs the expansion rate of the universe, and by using neutron-star tidal physics to probe the nature of dark matter and find possible evidence of primordial black holes. The investigators will also pursue an extensive broader impact program that brings the excitement of gravitational-wave science to students and the public. A coordinated outreach effort in Baltimore, MD and in central Pennsylvania will include lectures and demonstrations in local schools, introducing K–12 students to black holes, neutron stars, and the scientific method. Annual two-week summer camps at PSU, complemented by teacher-training activities at JHU, will engage students and educators in hands-on analysis of public LIGO data.

The proposed research will use the expanding LVK catalog to clarify the astrophysical pathways that produce merging black holes and neutron stars. Improved measurements of binary parameters and their correlations will allow the scientists to distinguish isolated evolutionary channels from dynamical assembly and hierarchical growth in dense stellar environments. In parallel, they will quantify the impact of waveform modeling systematics—especially for massive, asymmetric, and precessing mergers—on both single-event inference and population-level conclusions, ensuring robust interpretation of the most informative events. The project also seeks to attempt to resolve the Hubble tension by developing a complete, event-based framework for dark-siren cosmology. By incorporating waveform models with higher-order modes, accelerated Bayesian inference techniques, and spectroscopic follow-up from the Hobby–Eberly Telescope, the investigators will build the infrastructure required to obtain percent-level constraints on the Hubble constant from well-localized BBH and BNS mergers. Finally, by modeling how dark matter accumulates in neutron-star cores and can lead to implosion into low-mass black holes, they will use the growing BNS population to place stringent, gravitational-wave–based constraints on dark matter and primordial black holes.